CAREER: Markov Chain Monte Carlo Methods

Markov chain Monte Carlo (MCMC) methods are an important
algorithmic device in a variety of fields. This project studies
techniques for rigorous analysis of the convergence properties of
Markov chains. The emphasis is on refining probabilistic,
analytic and combinatorial tools (such as coupling, log-Sobolev,
and canonical paths) to improve existing algorithms and develop
efficient algorithms for important open problems.

Problems arising in computer science, discrete mathematics,
and physics are of particular interest, e.g., generating random
colorings and independent sets of bounded-degree graphs,
approximating the permanent, estimating the volume of a
convex body, and sampling contingency tables. The project
also studies inherent connections between phase
transitions in statistical physics models and convergence
properties of associated Markov chains.

The investigator is developing a new graduate course on MCMC methods.